Mathematical Sciences: Adaptive Spatial Regression and Classification

9403804 Friedman Prediction is one of the most widely applied statistical procedures. The purpose is to predict (estimate) the value(s) of one or more attributes {y(1),...,y(q)} ("response" variables) associated with an object (observation), given the simultaneous values of another set of attributes {x(1),...,x(n)} ("predictor" variables) associated with the same object. The prediction rule is derived from a set of "training" observations for which the values of all attributes (predictor and response) have been measured. When the response variables assume real (orderable) values the prediction problem is referred to as "regression". When a (single) response takes on K unorderable categorical values the problem is called "classification". In this case the response values can be viewed as a label that assigns the observation to one of K groups or classes, each class associated with one of the label values. The research under this proposal addresses an important subclass of prediction problems in which the predictor variables {x(t)} are labeled by an index t that takes on real values in a d - dimensional Eucludean space, and it is not unnatural to associate a distance between such variables with the distance between their corresponding index values. In these applications all of the predictor variables are generally measurements of the same quanity for different values of the index t. When t is one - dimensional, {x(t)} for varying values of t is call a "signal" or "spectrum". Similarly, a two-dimensional index gives rise to a "pattern", whereas dimensionalities of three or higher give rise to more general "spatial patterns". The goal of this research is to derive methods that exploit the spatial nature of the predictor variable index in more general (and more powerful) ways than have been done (with linear methods) in the past. These new methods will be based on adaptive (regression) splines, which have been among the most promising extensions of linear smoot hing to nonlinear flexible modeling, especially in higher dimensions. If successful, the result will be a more general class of spatial prediction procedures that will achieve higher accuracy in many situations than present day linear methods. The purpose of the research proposed under this grant is to develop new, more powerful, methods for computer automated pattern recognition. Patterns such as signals, spectra, or images are received, and the purpose is to predict the identity of the particular (unknown) system that produced the pattern, or some property of that system. Examples are disease diagnosis form EKG or EEG measurements, recognition of specific words (or speakers) from digitized electronic patterns of spoken speech, recognition of printed or handwritten characters from their digitized images, or identification of objects on the ground from satellite images. The methods to be developed are based on learning through experience from past successfully solved cases. The method is presented with a series of patterns, along with the corresponding correct answer for each one, obtained from past experience. Using this data, the method attempts to automatically learn rules for predicting future patterns for which the correct answer is unknown. This research focuses on developing pattern recognition learning methods that have greater flexibility and adaptibility than those presently in use. If successful, this research should produce new procedures that provide higher prediction accuracy for many applications than has been achieveable in the past.